Numeracy and Affect in Judgment and Decision Making

Recent research in numeracy suggests that individuals differ substantially
in their abilities to process numbers and that, in fact, many people are
"innumerate." In our increasingly technical world, innumeracy (a lack of
ability to understand and use basic probability and mathematical concepts)
may be a critical disadvantage to making good decisions in financial,
medical, and other domains.

The proposed research examines the roles of numeracy and affect in decision
making. We examine the extent to which numerical ability helps decisions in
some situations and hurts decisions in others. We also examine whether
numeracy impacts affective feelings, and we attempt to manipulate affect as
well as to enhance and disrupt calculation ability in order to test
hypotheses. This research will add to the growing body of knowledge
concerning how affective and deliberative ways of thinking may influence
important aspects of decision making such as the effects of describing
features of a decision in different ways (framing). In addition, proposals
for improving people's decision-making abilities are based primarily on
research results based on the population as a whole. It may be, however,
that individuals will differ in the type of assistance they need. Those low
in numerical ability may need different decision aids than those high in
numerical ability. In some decisions that involve very complex numbers, we
may all need assistance. We are increasingly being asked to make our own
decisions about vital life issues. No longer are health and financial
decisions left entirely to specialists such as the family doctor. Instead,
all decision makers are faced with more choices and more information than
in previous generations. Thus, research-based advice is essential to help
decision makers who differ in their preferences and abilities for
processing information and who face decisions that differ in numerical
complexity.